CAREER: Time-Frequency Analysis of Multilinear Operators and More General Nonlinear Operators

Research Abstract

Time-Frequency Analysis of Multilinear Operators
and More General Nonlinear Operators

This proposal focusses on the study of multilinear singular
integrals. Singular integrals have played an important role
in harmonic analysis over the past fifty years and are very
useful in other mathematical disciplines such as for example
partial differential equations. The main tool in the subject is
Littlewood Paley theory, whose main message is that functions on
Euclidean space should be decomposed into pieces whose frequency
content lie in concentric shells around the origin. Passing to
multilinear singular integrals one encounters the new phenomenon
that these multilinear singular integrals have translation symmetries
in frequency space. Therefore it doesnt suffice to study concentric
shells around the origin, but one has to study shells around any
point in frequency space.

Techniques have been develloped recently
to control the interaction of shells around different points in
frequency space, and the purpose of this project is to exploit and
further devellope these techniques and therefore better understand
multilinear singular integrals. Multilinear singular integrals appear
for example in formal Taylor series of nonlinear operators, or as
explicit correction terms in an iterative scheme. A particular
emphasis of the project will be to investigate possible applications
of this theory to partial differential equations and other fields
in mathematics.